Neutrino Physics at Low Energies

This proposal focusses on neutrino mass, one of the most elusive quantities in nature. Neutrinos are most visible at high energies while mass is best determined at low energies. Currently, indirect high energy studies are providing evidence that the mass is not zero. Tritium beta decay is known to be an ideal candidate for the direct measurement of neutrino mass, but, to date, has yielded results which appear to be unphysical. There is a good possibility that these results can be explained as interference with very weak interactions which are not included in the Standard Model description of particle physics. Such new interactions have been anticipated but cannot be predicted. To avoid conflict with other existing low energy data, it is necessary for us to include all three light neutrinos required by accelerator data, and to consider the possibility that the new interactions couple electrons to different combinations of those neutrinos than that coupled by the usual weak interaction. To learn whether this interpretation is viable or not, it must be tested against a large number of other precise low energy measurements.